US-Hungary Joint Fund Research on Charcoal Formation from Biomass at Elevated Pressures in a Stagnant Gas Environment

The primary objective of this US-Hungary research project under the Hungary Joint Fund between Dr. Gabor Varhegyi, Hungarian Academy of Sciences, and Michael Antal, University of Hawaii, is to get deeper knowledge about the fundamental chemical processes of the thermal decomposition of lignocellulosic materials and in this way to enhance utilization of the biomass materials. The agriculture and forestry industries produce large amounts of waste and by-products containing cellulose, hemicellulose and lignin, which can be thermally decomposed into valuable chemicals and/or charcoal. This project aims to find out how to influence the decomposition process in order to get higher amounts of the valuable byproducts. This research will identify 1) how the various components of biomass contribute to the formation of charcoal during pyrolysis at normal pressure in a flowing gas environment, 2) how the increase of pressure and the presence of the formed gaseous products influence charcoal yield in a stagnant gaseous environment, 3) how biomass composition influences charcoal yield at elevated pressures in a stagnant gaseous environment, 4) what are the kinetics and the heat demand of the reaction at elevated pressures in a stagnant gaseous environment. This project in inorganic chemistry fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Eastern Europe to combine complementary talents and pool research resources in areas of strong mutual interest and competence.